U.S. Global Change Research Program Activities

9320735 Buizer U.S. preparations for and participation in international initiatives related directly to the U.S. Global Change Research Program (USGCRP) will be supported. Specific activities to be undertaken include: operations of the Program Office for the USGCRP; preparation, translation and distribution of documentation for the USGCRP; and travel -- all of these associated with the implementation of the USGCRP's international programmatic and research-policy-related initiatives. These initiatives include participation and providing staffing for the International Group of Funding Agencies for Global Change Research (IGFA) which seeks to improve and expand national participation in and support of international global change research programs.